Acquisition of State-of-the-Art Hot-wire Anemometry Instrumentation for the Multidisciplinary Undergraduate Research in Turbulence (MURT) Project at Valparaiso University

Proposal Number: CTS 9977424

Principal Investigator: M. Barrett

This Major Research Instrumentation (MRI) award supports the acquisition of a state of the art hot wire anemometry and data acquisition system to support the Multidisciplinary Undergraduate Research in Turbulence project at Valparaiso University. The project will investigate atmospheric and engineering scale turbulent transport. The project's main focus is on the education and training of students in both Colleges of Engineering and of Arts and Sciences in the specific areas of atmospheric turbulence, environmental pollution in turbulent air and water flows, and generalized modeling of the turbulent transport of mass and thermal energy. In addition, it will be used in developing an educational seminar for faculty from nearby institutions.